Improving Productivity by Dose Equivalency Modeling

This research will apply classical test theory to address a human performance measurement problem: Screening workers for performance impairment may aid in removing drugs from the workplace and improve productivity. The most straightforward way to measure performance would seem to be under actual working conditions. In cases where this has been attempted, however, job performance measures were found to be generally insensitive to all but the most powerful effects. A central problem is the lack of reliability of on-the-job measures. However, tests which possess robust psychometric properties (stability, reliability, etc.) have been shown to be sensitive to alcohol, sleep loss, hypoxia, halon, and other chemical agents. Therefore, this research will index human performance decrements on a battery of perceptual, cognitive and motor tests to alcohol dosage (for which federally mandated standards already exist for some occupations). Then calibration algorithms would be derived for comparing performance changes in blood alcohol concentration units to losses from other agents, treatments and stressors for which there may be a concern in the work place. A fully up-and- running, special purpose test station will be produced. The prototype will contain these algorithms so that they can be set to predetermined levels. In Phase II, additional experimental work will be conducted to refine the algorithms, add other treatments, and improve the design of the test station by conducting test and evaluation at laboratory and work sites. The availability in an occupational setting of a test station which could index performance loss from any cause to a standard such as alcohol would have immediate application in industry in screening for fitness for duty. Additionally, monitoring by agencies, laboratories, or oneself can be useful in the study of toxic elements (e.g., asbestos, fluorocarbons), environmental agents (motion, radiation), illness (AIDS, dementia), work conditions (shift work, exercise), and personal states (aging, fatigue, emotional stress).